Educational Systems to Increase Student Achievement

The purpose of this project is to design an approach to science instruction that takes into account some findings from cognitive research. It has been widely demonstrated that students come into the classroom with invalid perceptions about physical phenomena which are not altered by current forms of instruction. Through interviews, this project will document the general misconceptions held by students, identify these for teachers, and develop methods which directly confront the misconceptions. The student materials will consist of a unit, "Models of Matter", which will be modified to also confront the commonly held misconceptions. The final product will be an educational system that integrates learning activities and teaching strategies to cause conceptual change. The modified "Models of Matter" unit will be randomly assigned to 12 of 24 Lansing, Michigan Public School grade six classes to test its effectiveness in increasing student achievement and promoting recommended teaching strategies. The remaining 12 sixth grade classes will use the unmodified "Models of Matter" unit. The project expects to demonstrate how authors can use existing research findings to modify commercial textbook units and teacher guides to increase student learning. Since most teachers structure their teaching around a commercial textbook, the project has national significance for improving student achievement in science.